Dull Knife-Northern Cheyenne Rural Systemic Initative

The Dull Knife Memorial College (DKMC) Rural Systemic Initiative will be a five year effort that will sustain and amplify the transformations already begun in the educational experiences of the K-14 students on and the Northern Cheyenne Reservation. The quality and quantity of the
learning experiences in science, mathematics and technology within and beyond the school
walls will be enhanced by professional development for teachers, adoption of effective
strategies, and promotion of parental and community involvement in the educational
process.

An advisory committe to the principal will provide input on program direction, objectives
and activities, policy decisions and special requests by program participants.
The creation of fonnal "personal professional growth" plans for each individual teacher will
be initiated with plans that are reviewed and updated annually but extended forward for
a five-year period. Professional development activities will be structured around cohorts
teachers based on closely related job and interest factors that the teachers identify and
a regional professional development committee will be formed to make training programs
self-determined by the area teachers. Emphasis will be placed on making the school site
a place to learn for teachers and parents as well as students.

Alternative assessment methods and implementation will be included as a component
of the professional development for school administrators and teachers. Staff will include
a local community member who will be employed to actively seek public and political support
for educational priorities within the reservation community, one educational professional in
mathematics/physical sciences and one in biological sciences who will work with area K-14
teachers.